Real-World Wireless Communications in the Graduate and Undergraduate Curriculum

This award provides funding for a three-year Combined Research-Curriculum Development (CRCD) program, entitled "Real-World Wireless Communications in the Graduate and Undergraduate Curriculum," at the University of Notre Dame, under the direction of Dr. Thomas E. Fuja. The overall objective of this project is to bring elements of the Notre Dame digital communications research and the capabilities created by the wireless facility, the WAND Lab, into the undergraduate and graduate electrical engineering curriculum at Notre Dame.